Physiological Regulation of Na,K-Pump Activity by Thyroid Hormone

An investigation of the molecular mechanisms which underly the stimulation of Na,K-pump activity by thyroid hormone should further the basic understanding of several physiologically significant processes. The Na,K-pump plays a fundamental role in all animal cells in maintaining the correct intracellular concentration of sodium and potassium which is crucial for normal cell activity. One well-known regulator of the pump is thyroid hormone. Thyroid hormone is a small molecule which is absolutely required for normal growth and development. However it is not presently understood how thyroid hormone functions. It is anticipated that an examination of thyroid hormone effects on Na,K-pump activity will begin to reveal some of the molecular details of the action of this important hormone. Finally, these studies might also provide insight into some general features of regulation of gene expression which may be of significance in normal growth and differentiation.